CAREER: Static-Analysis-Driven Engineering of Modern Software Systems

Users of software are all too familiar with its shortcomings: software
is slow, software is buggy and software is insecure. When a complex
software system fails, it is unhelpfully simplistic to blame the
implementors of the system as incompetent. The truth is that software
engineers are uniquely disadvantaged among the traditional engineering
disciplines because they lack a viable predictive model for the
systems they design and build. That is, a software engineer cannot
predict the behavior of software in practice in the same way that a
civil engineer can predict the behavior of a bridge under load. The
primary intellectual merit of this research is that it lays the
critical, systematic foundations for the science of prediction for
software. The broader impacts are to enable engineers to build better
software with the aid of predictivity. Moreover, this research also
seeks to develop courses and educational material to train the next
generation of software engineers in the art of constructing fast,
safe, reliable and secure software in this fashion. As this research
transfers into practice and engineers adopt this methodology, it will
significantly strengthen the foundation of national
cyberinfrastructure.

The core technical thrust of this research is the development of a
systematic method for the synthesis of static analyzers for complex,
modern programming languages. It also explores whether or not this
methodology can be automated in whole or in part. To motivate the
development of this method, this research applies the method to the
synthesis of intensional static analyzers for popular scripting
languages such as JavaScript, Perl, PHP, Ruby and Python—many of which
happen to be the languages powering modern, web-based software. The
foundational technical concept of this research is the systematic
transformation of small-step interpreters into static analyzers.
Small-step analyzers promise unique advantages over traditional
techniques, including more opportunities for optimizing speed and
precision, and clearer, easier reasoning about the soundness of the
results of the analysis.